Systematics of Seychellean Caecilians (Amphibia:Gymnophiona)

The research is aimed at studying the evolutionary relationships among several populations and species of caecilians in the Seychelles Archipelago, western Indian Ocean. Caecilians are small, legless, largely burrowing amphibians restricted to the tropics. The granitic islands of the Seychelles are the mountaintop remnants of a partially submerged microcontinent. About 18,000 years ago when world sea-levels were lower, the Seychellean microcontinent (129,560 km2) was fully emergent. With postglacial warming of the earth, sea-levels rose, and, about 10,000 years ago, the Seychellean microcontinent was fragmented into an archipelago. At the same time, the species that occurred on the microcontinent were fragmented into island populations. Since fragmentation, there has been no gene flow (interbreeding) between these island populations in species like caecilians, which are intolerant of salt water and lack means of dispersal across marine barriers. The fragmentation of species' ranges occurred in parallel, so that several species share the same fragmentation history. The situation described above is well-suited for the study of a variety of evolutionary phenomena. The major goals of the research are to (1) determine the evolutionary relationships of the species and populations by comparing anatomical and biochemical characters; (2) determine the influence of interrupted gene exchange on the divergence of populations; (3) determine the relationship between island separation time and molecular divergence compared to anatomical divergence; (4)determine whether patterns of genetic divergence are similar across species suggesting uniform rates of evolution; and (5) test recently developed models of gene flow using a multispecies approach with different degrees of dispersibility among species.